Travel and Publication Support for the 15th International Conference on Nucleation and Atmospheric Aerosols;Rolla, Missouri; August 6-11, 2000

This grant provides partial travel support for approximately ten scientists and ten graduate students from the United States to attend the 15th in the series of international conferences on nucleation and aerosols, to be held at the University of Missouri on August 6-11, 2000. Scientists and students receiving the awards will be chosen by the conference organizers on the basis of need and the contributions they can make to the conference. Approximately two-thirds of the $18,000 budget will be used for this purpose. The remaining third will be used to subsidize publication of the conference proceedings.